Conference for Applications of Heavy Tailed Distributions in Economics, Engineering and Statistics, June 3-5, 1999, Washington, DC

Abstract: This award provides partial travel support and local
expenses for the 20 invited speakers at the conference on
"Application of Heavy Tailed Distributions in Economics, Engineering
and Statistics" on June 3-5, 1999 in the Ward Circle Building at
the American University in Washington, D.C. Although heavy tailed
distributions are increasingly being used to model phenomena in
a wide range of applications in economics, finance, signal
processing, telecommunication network analysis, time series,
physical and biological provblems, progress in this area has been
limited by the lack of efficient and reliable methods of modeling,
analyzing and predicting for such models. In the past decade,
there has been significant progress in both the theory and methods
of working with non-Gaussian models. This conference will bring
together many of the top theoreticians and practitioners,
national and interenational, working in the field of heavy-tailed,
non-Gaussian models and those with experience with massive
data sets. The invited list of speakers includes four women.
Support for graduate students and young investigators is provided
with reduced registration fees.